South American Meridional B-Field Array (SAMBA): A Chilean-American Magnetometer Array

The investigators will deploy an array of latitudinally spaced magnetometers at low latitudes along the coast of Chile. The array will include a total of 11 sites extending from the northern coast of Chile to the tip of the Antarctic Peninsula. The array will provide the scientific community with much needed low latitude data from the South American continent by bridging the gap between existing chains of stations. The data are used to study the processes by which energy from the solar wind is transferred to the inner magnetosphere and generates pulsations and transient variations on the ground at low latitudes. The project is a collaborative effort between UCLA and a number of Chilean universities. Data from the array will also be used to study geomagnetic effects resulting from large solar storms.